Experimenting with Concurrent Multithreaded Architectures for High-Performance Computing

This research focuses on the compiler and architectural issues of concurrent multithreaded architectures. These architectures allow multiple threads to be active simultaneously to achieve multiple instruction issue in a single machine cycle. The architectural research focuses on the design of thread execution units that include support for communication between threads, for speculative thread execution, and for thread pipelining. Simulation at the functional and register-transfer levels will be the primary tool for this research. The compiler research focuses on integrating optimization for thread and instruction level parallelism. This research will take place in the context of modifications to the gcc compiler. While threads can be used to allow multiple independent programs to execute concurrently, the primary focus of this project is speeding up the execution of a single program.